Instrumentation Upgrade for Molecular Structure Center

This award from the Chemistry Research Instrumentation and Facilities Program (CRIF) and the Office of Multidisciplinary Activities (OMA) will help the Department of Chemistry at Indiana Ubniversity upgrade their Molecular structure Center by aquiring a CCD and CID systems. The equipment will enhance research in a number of areas including the following: (1) bioinorganic chemistry of Mn4 clusters, (2) transition metal cluster chemistry, and (3) unusual unsaturation, and consequent binding of very weak ligands. The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.